Instrumentation for Contemporary Energy Conversion Teaching Laboratory

Recent developments in electronics, such as the introduction of relatively low cost power switching devices and readily applicable microprocessors, are resulting in the widespread adoption of power electronic converters and controllers. Consequently the emphasis of electrical energy conversion education must adapt to reflect these changes. This project proposes to introduce contemporary display and recording techniques to undergraduate classes. For subjective exposure to the phenomena of voltages and currents with high harmonic content, current probes which respond faithfully to signals from dc to high frequency are required, together with appropriate oscilloscopes for display, capture and storage. Measurements of true r.m.s. values now require special meters which respond correctly to non-sinusoidal ac and distorted dc components. Finally, transducers based on Hall-effect devices are needed for measurements to determine true power and power factor. It is the aim of this project to provide undergraduates with hands-on experience in this rapidly changing and highly important area.